Learning Bayesian Networks that Contain Both Discrete and Continuous Variables

IRI-9509792 Cooper, Gregory University of Pittsburgh $69,951 - 13 mos. Learning Bayesian Networks that Contain both Discrete and Continuous Variables Probabilistic belief networks are increasingly being used to model belief in a great variety of domains in knowledge-based systems. Some of the most extensive work has been done in the area of medical knowledge and beliefs, and this project continues previous work in that domain. One of the problems that has continued to bedevil probabilistic network knowledge bases, as well as other knowledge bases, is knowledge acquisition. The goal in this work is to enable the use of medical and other types of databases and Bayesian learning methods to develop probabilistic networks. The particular type of probabilistic network structure being used here is called a Bayesian belief network. The method being investigated uses two stages. The first stage is a relatively generic technique for learning the qualitative, structural relationships among the model variables; and the second stage uses distribution- specific techniques for quantifying the relationships among the model variables. The hypothesis, to be tested on a variety of simulated and real-world databases, is that this method will produce more predictively accurate Bayesian belief network models.